Implementation of the Self-Evaluation Indicator System (SEIS) and Academic Indicator Report (AIR) with Capacity Building in Evaluation and Best Practices for HBCU-UP Grantees

Systemic Research, Inc. will provide support for the NSF's HBCU-UP project in the area of data collection, data analysis, and dissemination of results for each HBCU-UP project, as well as for the overall program. Systemic Research, Inc., has developed a Self-Evaluation Indicator System (SEIS) and has utilized this system to work with awardees to produce and Academic Indicator Report (AIR). SEIS is a data collection instrument, collecting data on student, faculty and institution in order to assist in evaluating the impact of the HBCU-UP program on each campus, and the impact of the HBCU-UP project.

In addition to the collection of quantitative data, Systemic Research combines qualitative information about each project in the production of the Academic Indicator Report. They will also develop and implement a Best Practices Clearinghouse as a means of disseminating proven tools used by HBCU-UP grantees in achieving the goal of strengthening the quality of STEM education on their campuses.